1999 Particle Accelerator Conference (PAC '99); March 29 - April 2, 1999, N.Y., N.Y

9900690
Weng
This proposal seeks funding, $5k, to support students to attend the 1999 particle Accelerator Conference. The main topics will involve hadron and lepton accelerators (muon colliders will be one of the subjects, FELS, and accelerators for cancer therapy.